Committee on Earth and Environmental Sciences (CEES) Task Group on Global Change Education Workshop, W. Alton Jones Campus, University of Rhode Island, July 14-17, 1991

Global Change research will require scientists trained in multidisciplinary approaches to research and technological development over the next decade. It will also require an informed and literate public to make wise resource use choices through the utilization of the results of the scientific research. Human resources development, therefore, will need to be multidisciplinary and include the human dimensions of global change. Many of the federal agencies are addressing these needs through development of agency specific educational opportunities but with no long-term framework or strategy for coordination and cooperation. The role of the CEES is to provide the coordinating mechanism for cooperative program planning and development. As a result, the University of Rhode Island, in cooperation with the CEES Task Group on Glocal Change Education, is proposing a Global Change Education Program Coordination Workshop for July, 1991. The first objective of the workshop is to develop a long-term framework and strategy for the CEES Education Task Group. The long-term plan will include educational opportunities and alternatives for K-14 (precollege and early college), upper level college and graduate programs, and informal, public education. All of the education and training programs of the Task Group are intended to complement the science priorities of CEES. The second objective is to provide a cooperative and coordinated approach for all federal govenment agency global change education programs. Such a cooperative approach would help to avoid emphases on one area to the detriment of other important foci. The workshop planned for the W. Alton Jones Campus of the University of Rhode Island on July 14-17, 1991 will result in at least two tangible products: 1) A long-term educational strategy plan including prioritized options; and 2) Draft implementation strategies.